Investigation of Interactions Among Terrain Drag, Ageostrophic Frontogenesis, Mesoscale Cyclogenesis and Drylines

The impact of orography on winter storms has been recognized for several decades. It has been established that terrain of significant relief impacts local weather and current numerical models often do not accurately forecast extreme weather phenomena that are influenced by the local terrain. Using data collected from two already completed field programs (Genesis of Atlantic Lows Experiment and the Stormscale, Operational and Research Meteorology-Fronts Experiment, Systems Test), the Principal Investigators will conduct numerical and observational studies of the structure and evolution of fronts and associated mesoscale weather systems along the East Coast and the continental United States. Particular attention will be paid to mesoscale rapid frontogenesis and subsequent mesoscale cyclogenesis over the East Coast when synoptic-scale flow is impeded by the Appalachian Mountains. Documentation of scale interactions between the synoptic-scale flow patterns and resulting mesoscale weather will be emphasized.